Observational Tests of Cosmological Models

Hogan, Craig AST 96-17036 Dr. Hogan will conduct research on two projects in observational cosmology. The first project will measure the abundance of deuterium in QSO absorbers as a test of Big Bang nucleosynthesis and a measurement of the cosmic baryon density, in particular, to resolve the present dichotomy between high and low abundances. The second project will test cosmologies using Type Ia supernovae as standard candles. A large sample of Abell clusters will be observed to discover a much larger sample of supernovae than presently available on which to base a study of the `flow' reported by Lauer and Postman, as well as to fill in the linear part of the Hubble diagram.